Cross-Task Learning for Natural Language Processing

This project considers the problem of simultaneously solving multiple
component-level natural language processing problems. Such
component-level tasks are necessary as building blocks for large-scale
applications (eg., automatic document summarization, machine
translation, etc.), but are typically solved independently. These
independent solutions ignore the natural connections that relate the
output of one problem to the output of the other. This research
explores the ability to exploit such output correspondences to aid
machine learning algorithms, termed "Cross-Task Learning." These
output correspondences provide strong prior information about the
relationship between the desired outputs of multiple problems. This
prior knowledge can potentially serve to improve task-level
performance, even when large amounts of training data are unavailable.
The research exploits such prior knowledge using a k-best methodology
so as to maximize the applicability of these techniques. It also
develops new techniques for semi-supervised learning based on the idea
of output correspondences in order to capitalize on the vast amounts
of unannotated data that are available. In addition, the proposed techniques
are analyzed in the context of computational learning theory. The outcome
will be a set of techniques for learning across multiple natural language processing
tasks. This technology will be empirically evaluated in the context
of low-level tasks such as shallow parsing and named entity
recognition, as well as the high-level tasks of discourse analysis and
automatic document summarization.